AF: Small: Distributed Algorithms for Dynamic, Noisy Platforms: Wireless Networks, Robot Swarms, and Insect Colonies

Distributed systems are now everywhere, in the form of wired and
wireless communication networks, distributed data-management systems,
social networks, coordinated robots, and controlled transportation
systems; their prevalence and importance will continue to grow. This
project is developing theory for distributed systems. Most existing
theory for distributed systems has focused on algorithms that achieve high
performance on relatively well-behaved computing platforms, such as
reliable, static networks or shared-memory multiprocessors. In
contrast, this project focuses on theory for very badly behaved
platforms such as wireless networks and robot swarms---platforms that
exhibit noise and uncertainty and that change unpredictably over time.
The project considers how one can design good distributed
algorithms for such settings. The approach is inspired by the
biological world, in which interacting entities, such as cells or
organisms, live in unpredictable environments, and must contend
regularly with noise and change. Wireless networks and robot swarms
are similar in many ways to social insect colonies (such as ants or
bees). In spite of their difficult environments, social insects can
solve sophisticated problems, for example, problems of searching,
construction, consensus, and task allocation. Understanding how they
do this should help computing researchers to design better algorithms
for wireless networks and robots. Thus, this project combines its
study of algorithms for wireless networks and robot swarms with a
theoretical study of insect colony behavior.

Specifically, the project seeks new algorithms by which ad hoc
wireless networks, robot swarms, and insect colonies can solve
fundamental problems of communication, construction, reaching
consensus, estimation, data processing, searching, shape formation,
task allocation, and more. It also seeks corresponding lower bounds,
especially bounds that highlight the costs of accommodating changes
and uncertainty. It looks for general insights and principles for
distributed computing in dynamic and noisy settings, including metrics
for measuring tolerance to noise and change, strategies for designing
algorithms, relationships between different models and problems, and
results articulating the inherent costs of accommodating change and
uncertainty. Algorithms that are studied are mostly probabilistic and
synchronous. They tend to be simple, and not to use large local state
or elaborate bookkeeping. Ideally, they should be self-stabilizing,
that is, able to recover starting from arbitrary configurations. They
may make extensive use of estimation of environmental and system
properties. The project uses mathematical techniques from distributed
computing theory and probability theory.